Problem-Based Learning (PBL) for Sustainable Technology: Increasing the STEM Pipeline (STEM PBL)

This ATE curriculum and professional development project, "Problem-Based Learning (PBL) for Sustainable Technology: Increasing the STEM Pipeline" is building on a strong foundation from previous projects including PHOTON PBL (DUE#0603143). Using Problem-Based Learning (PBL), they are developing active hands-on learning resources that challenge students to explore new and emerging technologies, to "think outside the box," and to apply their knowledge, skills and creativity in solving authentic real-world problems. This project is 1) expanding the scope of PHOTON PBL multimedia instructional materials to address additional STEM disciplines with a focus on sustainable technologies such as alternative energy, lighting, sensors, environmental protection, nanotechnology and biotechnology; 2) creating and implementing a web-based professional development course for the PHOTON PBL; and 3) developing a model one-semester classroom course in problem-based instructional methods for use in pre-service Technology and Engineering Education programs. They are also conducting research on the efficacy of Problem-Based Learning in STEM education. Their results are being disseminated through the project website (www.photonprojects.org), listserve, annual newsletter, presentations at professional organization meetings, and publications in professional journals.